BioChE XV Conference: Engineering Biology from Biomolecules to Complex Systems

0733969 (Betenbaugh): This award is for partial support of the BioChE XV Conference: Engineering Biology from Biomolecules to Complex Systems, to be held in Quebec City, Canada, July 15-19, 2007. The award will fund attendance by 8 U.S. faculty speakers, 8 U.S. faculty presenting posters, and 6 U.S. graduate students/postdoctoral fellows.